Potential Theory of Symmetric Stable Processes, p-Laplacian on Trees and Quasiregular Maps

ABSTRACT

The goal of the research is to study potential theoretic problems
arising in the following areas. (1) Symmetric stable processes are
discontinuous and nonlocal versions of Brownian motions. The jumps of
the processes impose many technical complications, at the same time
making the roughness of the boundary invisible; consequently they
produce many unexpected properties and interesting questions.
Harmonic measures, Martin boundaries and a certain version of boundary
Harnack principle will be investigated. (2) On trees of nonregular
branching, or on a random Galton-Watson tree, problems on sizes of
Fatou sets of bounded p-harmonic functions will be studied. These
are discrete analoge of the usual p-harmonic functions. (3) For
a quasiregular mapping on the unit ball, the relation between the
volume growth of the mapping and size of the set on the unit sphere
where the function has asymptotic values will be analyzed. This
constitutes a first step towards a very difficult problem of Fatou
sets for bounded quasiregular mappings.
Brownian motion has been studied at least since Norbert Wiener and has
played a central role in probability and potential theory, which in
turn are very important in the study of differential equations, heat
conductivity, electrostatic potential and fluid dynamics. Recently,
there are many problems in physics and mathematical finance and risk
estimation which have been modelled and studied successfully with the
use of symmetric stable processes -- discontinuous counterpart of the
Brownian motions. A symmetric stable process has discontinuous
sample paths and heavy tails, while Brownian motion has continuous
sample paths and exponentially decaying tails. Therefore many
techniques from Brownian motions can not be routinely adapted to these
processes. Wide range applications and challenging behaviors of the
processes are the motivation behind the proposed research. Wu hopes
that knowledge derived from a theoretical study of these processes
from an analytical point of view, will give new tools for applications
in physics and finance.